Governor's School Strengthening Grant

Mountain Empire Community College will initiate a four-week, multidisciplinary, commuter Young Scholars project in Science and Mathematics for 60 students entering grades 10-12. This project features hands-on scientific and mathematical research, including overnight field trips to science-related facilities and locations. Real-world environmental and ecological problems are studied and innovative teaching methods are used. Participants are provided a choice of study in the fields of microbiology and environmental science; chemistry, geology and physical science; or mathematics and computer science. Students receive college credit for their research activities. Area high school mathematics and science teachers assist college faculty during the summer and serve as contacts to insure the continuation of activities and instructional methodologies in the high schools.